Toughening of Gamma Titanium Aluminide by Martensitic Transformation in a Metastable Dispersion

9317804 Grujicic The mechanism and the potential for transformation toughening of gamma titanium aluminide (TiAl) by the introduction of a metastable titanium-aluminum-vanadium-iron (Al-Ti-V-Fe) beta phase dispersion are investigated by (a) experimental characterization and numerical modeling of materials constitutive relations, and (b) fracture toughness measurements and detailed observations of martensitic transformation in the vicinity of the crack tip. Three types of gamma TiAl base-alloys containing a dispersion of beta phase with different thermodynamic stabilities have been designed using a thermodynamic-based procedure. Quantitative constitutive relations that are based on stress-assisted and strain-induced transformation kinetics for gamma TiAl plus beta Ti-Al-V-Fe systems are to be developed. These relations are then used in a finite element analysis to study the interaction of a moving crack in the gamma TiAl matrix with beta phase particles and grain boundary microcracks. %%% This research represents a new approach to toughening of gamma titanium alloys. The results could serve as a basis for improved toughness in high temperature titanium alloys. ***